From First Words to Fluency in Mandarin

This research project follows 300 Mandarin-speaking children in Beijing,
China, who will be tested at yearly intervals from 8 months to 5-1/2
years of age. Our goals are to describe basic patterns of language
development in Mandarin Chinese as well as to examine how different
aspects of language development interact over time.

Mandarin is the language of focus for this research not only because of
the current under-availability of data on the language spoken by the
world's largest population, but also because specific features of
Mandarin phonology, vocabulary, and syntax differ enormously and in
theoretically interesting ways from English. Several of these issues
have been examined independently in small samples of children and
results from these studies have already posed major challenges to
existing theories of how children learn their native language.
Replicating and extending these findings in a large, representative
sample will allow for much stronger universal theories of language
acquisition.

The sample of children to be investigated in this study is unique and
exemplary in child language acquisition in terms of its size, diversity
across gender and socioeconomic groups, representativeness across
different levels of linguistic abilities, and in the wealth of
linguistic and background data sampled. At each wave of data
collection, children's phonological, lexical, syntactic, and pragmatic
development will be measured, allowing for the investigation of specific
hypotheses with powerful statistical modeling techniques.